Research in Strong-Interaction Theory

0098645
Furnstahl
This group will study a broad range of problems involving strongly interacting systems using either Quantum Chromodynamics (QCD), the underlying field theory of the strong interaction, or its connection to effective theories of the strong interaction at low energies. Calculations of meson and glueball masses will be made directly as a QCD bound state problem using light-front renormalization-group techniques. Effective field theory techniques will be used to connect QCD with the nuclear many-body problem and with relativistic hadronic description of nuclear reactions.